Algebraic Combinatorics

The project focuses on the study of combinatorial structures arising
in algebra and geometry, with an emphasis on the theory and applications
of cluster algebras. Cluster algebras, discovered by the investigator in
collaboration with A.Zelevinsky, are a class of commutative rings which
have found applications in several mathematical disciplines, including
representation theory, Teichmueller theory, discrete dynamical systems,
total positivity, Lie theory, tropical geometry, and enumerative and
geometric combinatorics. The investigator develops general structural
theory of cluster algebras and related combinatorial constructions, and
applies it to the study of concrete classes of cluster algebras arising
in various applications.

The original motivation for this project comes from several classical
areas of mathematics listed above. The main tools come from combinatorics,
including combinatorial topology, algebraic and geometric combinatorics,
and the theory of root systems. Combinatorics deals with discrete objects
such as finite sets, graphs, permutations, partial orders, etc. Many
continuous phenomena allow for a discrete representation, lending
themselves amenable to combinatorial methods of study. It is often the
case that identical or similar combinatorial structures underlie
seamingly unrelated mathematical entities, revealing hidden connections
between them and allowing to transport insights and techniques from one
discipline to another. One case in point is the theory of cluster
algebras, which are the main focus of this project.